Development of Bioerodible Polymer Matrices for Osteoblast Growth and Maturation

This is a proposal to develop bioerodible polymer matrices for the growth of osteoblasts and their precursors. A two-dimensional model system will be developed to determine cell attachment, growth, and DNA expression as a function of the physical and chemical nature of the polymeric material. The research will provide insight into the design of three-dimensional systems that may be useful for bone grafting, prosthetic implants and coatings.